Instituting a Teacher Enhancement Program for High School Teachers of Chemistry at the Biennial Conference on ChemicalEducation

This is a project which will augment the Chemical Education Conference of the Division of Chemistry Education (DivChed) of the American Chemical Society (ACS) which is held biennially at different sites across the country. The 11th Biennial Conference will be held at the University of Atlanta, Athens GA in August of l990. The objective of the project is to serve the needs of the underprepared high school teachers of chemistry. Specifically, a series of lectures, demonstrations workshops, and computer- usage workshops are planned which will take place at the University of Georgia and Clark University before and after the week-long Conference. During the Conference, the 100 teacher/participants selected from within a 300 mile radius of the planned site will attend meetings, symposia, workshops and informal activities. In this way they will begin to interact with the chemical education community. This ought to help allay the teachers feelings of isolation from their peers. The participants' registration will be provided by the sponsoring organization, DivChed. A Visiting Master Teacher Program and a spring Follow-up Session are also included in the project in order to support and reinforce the momentum developed during the summer. A high priority of the program is to develop an infrastructure among teachers of the southeastern region of the United States, particularly among those who are teaching large numbers of students who are traditionally underrepresented in the sciences. It is hoped that this program will provide a model for enhancing the effectiveness of the DivChed Biennial Conferences in working with the underprepared and underserved precollege chemistry teachers. Approximately one-third of the total cost of the project is being provided by private sector, the ACS, DivChed and in-kind contributions.